READING RAINBOW: Literature-based Math

9614339 Liggett Nebraskans for Public Television is developing the math strand in Reading Rainbow. Under this grant, the project will "re-purpose" 30 existing Reading Rainbow program for use in mathematics learning, produce two new math-focused programs, and institute a comprehensive outreach campaign. Books currently being considered for the new programs are Mama Bear, which looks at money and its uses and examines some simple economics; and Echoes for the Eye which explores patterns in nature. The outreach will solicit and involve families served by the National Urban League; recruit school and community-based children's librarians in the math-based literature effort; and expand the local public broadcasting outreach efforts related to the math focus of the series from the eight model stations in the previous year to all interested public television stations. The target will be to involve at least 75 stations in substantive outreach to families and schools. The project also will develop and disseminate a new print piece modeled after the very successful Math is Everywhere Reading Rainbow Teachers Guide which has been used by over 3,000 teachers. Twila Liggett will continue as Executive Producer and Project Manager and LeVar Burton will remain as host and Co-Executive Producer. Cecily and Larry Truett will be Supervising Producer and Producer/Director respectively. Advisors include Herbert Ginsburg from Teachers College, Columbia University; Lucille Mahon, Math Coordinator, NYC Community School District 2; Solomon Garfunkel, Executive Director, COMAP, Inc.; and Judith Jacobs, Director of the Center for Education and Equity in Mathematics, Science, and Technology at California State Polytechnic University.